BMES/EMBS Mini-Symposia on Molecular and Cell Engineering and Tissue Engineering, October 13-16, 1999, Atlanta, Georgia

9906893
Nerem
This award provides partial support for two of the several mini-symposia to be presented during the first joint meeting of the BMES and the EMBS in Atlanta, Georgia, October 13-16, 1999. Approximately 2,000 persons are expected to participate in the meeting. The mini-symposia are Molecular and Cell Engineering, and Tissue Engineering. The three speakers for each mini-symposium are younger investigators who are rapidly becoming leaders in their fields of inquiry.

The mini-symposia will describe the state-of-the-science and engineering in two important fields of biomedical engineering research and are expected to contribute to the development and maturation of new technologies with applications in medicine. The proceedings of the Joint EMBS/BMES Meeting are to be published on CD-ROM.